3-D Mapping of Attenuation in the Upper Mantle Using Mantle Waves

This research is a continuation of the determination of seismic wave attenuation within the earth. Preliminary results show evidence for the existence of a strong degree 2 attenuation in the depth range corresponding to the upper mantle low Q zone. Data collection will be significantly increased by including very long period fundamental mode Rayleigh wave data accumulated in the past 2 years a 20 Geoscope stations and several IRIS stations. 3D models of attenuation for the earth will be generated with particular attention to the Pacific Ocean zone where a deep rooted attenuation maximum is postulated. The 3D models will provide information on uppermantle temperature and viscosity distributions with a goal of understanding the convective processes in the upper mantle.